A Tissue Culture Facility for Immunology

A tissue culture facility will be established that will be used extensively by students in Immunology and in Research in Immunology. Students in Immunology will perform the mixed leukocyte reaction, the cytotoxicity assay, and the production and maintenance of monoclonal antibody-producing hybridomas. Students in the research course will use the techniques for their senior thesis work with the P.I. as mentor. Tissue culture methods will also be introduced into other departmental courses such as cell biology, neurobiology, and developmental biology, and can be used by additional students in senior research projects in those areas. The college will provide 50% matching funds.